Reactive Polymers: Applications in Organic Synthesis

The focus of this research involves the development of polymerization methodology. Cross-linked functionalized resins, functional polymer disks, dendrimeric disks, beads within disks and hybrid dendrimer/monolith and bead/monolith approaches to flow-through systems will all be studied. Further, polyheterocyclic macromolecules will be prepared on solid phases and novel mass spectrometric (MS) based techniques will be developed for bead tagging to enable diversity characterization of combinatorial libraries.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Mark J. Kurth and Dr. Neil E. Schore in the Department of Chemistry at the University of California-Davis. This collaborative effort will focus on developing methodology for the preparation and evaluation of reactive polymer systems for use in organic synthesis. There is potential for broader impact of the work in the area of environmentally friendly chemistry and for the pharmaceutical industry. Also, the project presents an excellent arena for the training of graduate students.